High Resolution Gamma Spectroscopy and X-ray Fluorescene forthe Advanced Undergraduate Laboratory

The Department of Physics will purchase a hyper-pure, intrinsic germanium detector and a MCA-card for an IBM-PC. The equipment would be used to strengthen the department's advanced laboratory program by introducing experiments in neutron activation, X-ray fluorescence and environmental studies.